Packet Network Architecture and Prorocols for Video Services

9506048 Lam During the course of this project, the principal investigator will investigate the design and performance of a new class of packet switching networks, called Burst Scheduling networks, for supporting multimedia applications. Burst Scheduling networks are designed for carrying video, audio, and data traffic, and characterized by: (i) use of virtual clock values in channel scheduling, (ii) packet flows (in particular, video flows) processed efficiently in bursts, and (iii) delay and delay jitter guarantees provided to packet flows that satisfy a Flow Specification (a new model of packet video motivated by our recent study of MPEG video). The primary objective of the proposed project is to investigate network design issues, such as, statistical versus deterministic performance guarantees, demand assignment strategies, efficient scheduling algorithms, fault-tolerant architecture and protocols, modeling of audio and delay-sensitive data traffic, flow control and buffer management strategies. The secondary objective of the proposed project is to investigate the design and prototyping of a transport protocol that makes use of performance guarantees provided by Burst Scheduling networks to support multimedia applications. Some of the proposed research problems will be investigated using mathematical methods. All of the research problems will be investigated experimentally in the Networking Research Laboratory of the Department of Computer Sciences. Specifically, we plan to add capabilities to a simulator of Burst Scheduling networks to enable the proposed research activities. The simulator will be run on a high-performance workstation and will be connected to other workstations where the prototype transport protocol and a real multimedia application will be run, supplying video, audio, and data flows to the simulator. *** ******* Darleen Fisher Program Manager Networking and Communications Research Program 4201 Wilson Blvd. Roo m 1175 Arlington Va 22230 (703) 306-1949 (703) 306-0621 (FAX)